Holographic Windows for Architectural Daylighting

Holographic passive tracking is absolutely vital for any architectural daylighting function. Photics has invented a viable passive tracking hologram which will track and diffract the suns light into the interior ceiling of a work area. The hologram will be designed to use the combination of transmitted and diffracted light, which will produce the maximum illumination in the work area.